Knowledge Representation for Mathematics

New automatic theorem proving techniques are examined and evalu- ated by foundationally verifying well known theorems in pure mathematics. The investigator has already used object-oriented inference techniques to verify the Stone representation theorem for Boolean lattices from the axioms of set theory. The new inference techniques are evaluated by measuring the amount of user-given detail needed to foundationally verify Bledsoe's ten challenge problems. The inference techniques to be evaluated include new forward chaining constraint propagation techniques, a forward chaining mechanism for mathematical induction, automated focus control for object-oriented inference, and a sound mechan- ism for verifying and applying user-defined algorithms. Automatic reasoning is one of the central problems of artificial intelligence, with potential for application in software and hardware verification, deductive data retrieval, online docu- mentation systems, and computer-aided instruction in mathematics and the sciences. This research seeks to establish that auto- matic inference can be used in practice and that progress is being made toward ever more effective methods.